NSF Microfabrication Laboratory Workshops

9353920 Gwozdz Workshops on microfabrication are provided for undergraduate faculty. These workshops teach technology used for the manufacture of integrated circuits and other miniature devices. Hands-on laboratory experience, under the direction of experts in the field, is emphasized. The subject matter is highly interdisciplinary, appropriate for faculty from most science and engineering departments. Workshops are particularly appropriate for teachers of introductory courses in materials science and engineering, electrical engineering, chemistry and chemical engineering, and physics. ***